ITR: Multi-Scale Interaction with 3D Data Environments

This is the first year funding of a three-year continuing award. This multi-disciplinary study will explore a novel approach based on 3D magnifying "lenses" to building improved highly interactive 3D interfaces to scientific and engineering data that allow users to easily interact at multiple scales and with multiple coordinate systems. To be effective it is necessary that interfaces to large data bases be highly interactive allowing users to "drill down" on demand to see detail as necessary, or to "zoom out" to get contextual information. The P1 will extend human spatial cognition theory to deal with common problems in interactive 3D visualization systems, and in particular to cover perceptual issues relating to eye-hand coordination in multi-scale environments using stereo and head tracking VR technologies to improve visualization and interaction. The PI will develop techniques to link views so that users do not become disoriented while interacting with data at different scales. A proof-of-concept prototype that enables scientists and engineers to monitor and control remotely operated vehicles or autonomous undersea vehicles will be used to conduct experimental user evaluations to provide feedback and measure success.